Biology Laboratory Instrumentation Development

Biological Sciences (61)

This project is greatly enhancing teaching laboratories in upper-division molecular and cellular biology, microbiology, immunology and developmental biology by providing students the opportunity to engage in experimental work which can now only be read about. Introductory students are benefiting through undergraduate research projects on the restoration of the Benedictine Bottoms (re-establishment of Missouri river bottom lands). The project adapts protocols in the literature for undergraduate use and is part of the institution's developing Biology Discovery curriculum.